Symplectic Topology, Mirror Symmetry and Analysis of Pseudoholomorphic Curves

In the last two decades of development in symplectic topology
since the advent of Gromov's pseudoholomorphic curves, the method
of pseudoholomorphic curves manifested many genuinely symplectic
phenomena combining tools from geometric analysis and Hamiltonian
dynamics. Floer theory and its cousin, symplectic field theory,
have emerged as a unifying force of analysis, dynamics and
geometry via the language of homological algebra. With Floer
theory and the relevant analysis of holomorphic curves as the
common tools of investigation, this project centers around the
investigation of deeper aspects of symplectic topology and
Hamiltonian dynamics up to the level of the topological category.
The project also aims at the study of the moduli space of
pseudoholomorphic curves, both open and closed, beyond the
well-known stable map type compactifications and its applications
to symplectic topology and to mirror symmetry through adiabatic
degeneration and the blow-up analysis. The proposed research will
put the method of pseudoholomorphic curves in symplectic topology
in better perspective and further promote the existing
interactions between geometric analysis, symplectic topology and
dynamical systems. The Hamiltonian formalism played a fundamental
role not only for solving problems in classical mechanics but also
for transforming the classical mechanics into quantum mechanics.
When one considers mechanics in a constrained system, i.e.,
mechanics on a curved space like `spherical pendulum' or
`billiards', description of the corresponding phase space and the
differential equation requires the Hamiltonian formalism in the
context of the symplectic structure and symplectic manifolds.

In symplectic geometry, there are two aspects of study, one the
dynamical aspect and the other the geometric aspect. Understanding
the interplay between the two aspects is the core of symplectic
topology. Oh's proposed research aims at deeper understanding of
symplectic topology, and of its relation to the string theory in
physics. It also aims at easing an access of new coming graduate
students and mathematicians from related fields to the results
derived from Oh's research by proposing to write a graduate level
textbook on Floer theory and its applications.